Fluorinated Closo-Heteroborane Anions and Nonclassical Metal Carbonyls

Dr. Steven H. Strauss, Department of Chemistry, Colorado State University, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division for research into the use of fluorinated closo-heteroborane anions as weakly coordinating anions (WCAs) and for investigations into nonclassical metal carbonyls. Fluorinated closo-heteroborane anions will be developed as a new set of WCAs that are stable under a wide variety of conditions, including high temperatures and in aqueous acid and base solutions. These anions will be relatively inexpensive and easy to prepare and will be applied to a variety of problems involving structure and bonding, materials science, and catalysis. The WCAs will be used as counterions with cationic metal carbonyls that possess little or no metal-ligand pi backbonding. The structure, bonding, and chemical reactivity of these complexes will be studied and applications, including Diels-Alder and Michael addition catalysis and lithium ion conductivity in polymer blends, will be developed. Many important laboratory and industrial processes are facilitated by metal catalysts. This research centers about a class of compounds in which a positively charged metal containing fragment (called a cation) is counterbalanced by a large negatively charged species that does not interact strongly with the metal (These are termed weakly coordinating anions or WCAs.). Since cationic metal-WCA complexes are known to be good catalysts for a variety of reactions, the new WCAs, to be studied in this project, are important because they will be inexpensive and stable under the harsh conditions encountered in real world application. Some of the important industrial processes in which these compounds may be used include gas purification, water gas shift catalysis, and methanol synthesis catalysis. A particular application that will be studied is the Cu(I)-catalyzed carbonylation of organic compounds in homogeneous solution.